1992 Gordon Research Conference on Multi-Photon Process; New London, New Hampshire; June 7-12, 1992

This award supports the 1992 Gordon Conference on multiphoton processes. Twenty-three speakers from many disciplines (chemists, physicists, experimentalists, and theorists) will gather in New London, NH from June 8 to 12 to discuss results and exchange information.